Gordon Research Conference on Thin Film Mechanical Behavior

Partial support is provided for the second Gordon Research Conference on Thin Film Mechanical Behavior. The meeting will explore research frontiers in deformation and failure of thin films, their adhesion and delamination, the stress evolution during film growth, and issues in modeling and characterization of these films. The target audience includes highly qualified and currently active researchers as well as graduate students and post doctoral researchers from diverse groups.